MRI Track 1: Microplastics Instrumentation for Environmental, Engineering, and Health Research and Education

Microplastics are now widespread throughout the world's ecosystems, raising important concerns about environmental and human health. To address this growing challenge, the University of Maine will acquire a Fourier Transform Infrared (FTIR) microscope. This state-of-the-art instrument is designed to identify and measure microplastic particles in complex environmental and biological samples. This advanced technology will significantly strengthen research on clean water, seafood safety, ecosystem health, and public health. The instrumentation will support 30 partners from within and beyond the University of Maine. The project will also provide hands-on training for students and early-career researchers, helping to build a skilled workforce prepared to address environmental challenges facing Maine, the United States, and the world.

The new FTIR microscope will provide rapid, high-resolution chemical imaging and identification of microplastics in water, snow, ice, soils, sediments, food products, and biological tissues. The instrument will support research that tracks the transport, deposition, and sources of microplastics; assesses their impacts on marine, freshwater, and terrestrial ecosystems; examines their interactions with contaminants such as Per- and polyfluoroalkyl substances (PFAS), persistent organic pollutants, metals, and pathogens; and evaluates human exposure through food, water, and air. The facility will promote interdisciplinary collaboration among University of Maine researchers and federal, public, commercial, and academic partners while enhancing student research, workforce development, and public outreach. Together, these efforts will expand national capacity to understand, monitor, and mitigate microplastic pollution.